34th Annual Meeting: Wind River Conference on Genetic Exchange June 1990, Estes Park, Colorado.

Support is requested for the 34th annual meeting of the Wind River Conference on Genetic Exchange, to be held at the Wind River Ranch, Estes Park, Colorado, June 6-10 1990. This conference is primarily concerned with the biology and molecular biology of genetic exchange systems in a variety of procaryotic and eucaryotic systems, and is the major annually occurring meeting devoted to this subject area internationally. One significant feature of these meetings is their accessibility to graduate students and post-doctoral students, whose travel funds frequently are limited. Specifically to address this problem, funds are provided to support travel and scholarships to facilitate the attendance of graduate students and post-doctoral students working in various areas of genetic exchange and related subject areas.